Computer-Aided Learning Modules for General-Education Geology Courses

This project takes advantage of recent developments in multimedia computer technology to create an integrated set of computer-aided learning (CAL) modules to teach fundamental concepts of geology in general education courses. The software consists of graphics-intensive, interactive multimedia modules that will include animation, video, sound, and hypertext linking across topics. Module topics include global geology, plate tectonics, geologic time, Earth interior, Earth materials, global cycles, human influences, and evolution of the Earth. Questions throughout the material provide immediate feedback to the students and guide their progress. Quizzes after each section assess concept attainment and provide automated scoring for assessment of student progress and effectiveness of the instructional media. The new modules build on the success of an award-winning pilot module developed by the PI, and are guided by student evaluations collected throughout the development and assessment phases. The initial target audience will be students in two large general education courses for non-science majors (>60% freshmen-sophomores, ~10% education majors) taught by the PI (History of Life) and the Co-PI (Planet Earth). The modules have broad applicability to any introductory geology general education course, and will be published, widely advertised, and disseminated nationally to universities, colleges, junior colleges, and high schools. Extensive use of the modules in the preparation of elementary and secondary teachers is planned.